Operads and Homotopy Algebra

9971434
Voronov
There are two objectives of this project. One is to work on and
eventually prove the following conjecture of Deligne: There exists the
(natural) structure of an algebra over a chain operad of the little
disks operad on the Hochschild complex of any associative algebra.
The other objective is to study holomorphic line bundles over the
moduli space of algebraic curves with a holomorphic disk and prove the
analogue of Borel-Weil-Bott Theorem for this space, considered as
homogeneous space for the Virasoro algebra. The significance of the
project on Deligne's Conjecture consists in studying presumably deep
connections between one complex variable and associative algebras.
The proof of Deligne's Conjecture will also further simplify the proof
of the existence of a deformation quantization of a Poisson manifold,
originally proved by Kontsevich and simplified by Tamarkin. The
completion of the Borel-Weil-Bott part of the project will establish
important relationship between the geometry of the moduli space and
the representation theory of the Virasoro algebra.
The structure of an algebra over a chain operad indicates, usually
explicitly, the presence of a ``homotopy something'' algebra, an
algebra with certain identities, such as associativity, satisfied in
only an approximate way known as ``up to homotopy.'' Such structures
have been used by Stasheff and May in their study of loop spaces,
Beilinson and Ginzburg and Hinich and Schechtman in the study of
deformation theory of algebraic varieties and vector bundles over
them, and by Kontsevich toward knot invariants. Witten and Zwiebach
have effectively used the homotopy Lie structure in string theory.
Deligne's Conjecture may be reformulated as the existence of a certain
string theory associated to every associative algebra. Thus, the
proof of the conjecture will create ground for considerable progress
in studying applications of algebra to geometry and theoretical
physics. The significance of the moduli space part of the project is
in extending the fundamental relationship between the geometry of a
homogeneous space and the representation theory of a semisimple Lie
group to the case of the moduli space of Riemann surfaces and the
Virasoro algebra, respectively. As in the classical case, the
completion of this project would contribute mutually to the two
subjects: the geometry of the moduli space and the representation
theory of the Virasoro algebra. Both subjects are much more
complicated and less studied than those in the classical situation.
The project aims to advance the general understanding of each. In
general, the study of the geometry and topology of moduli spaces has
recently become very important, as moduli spaces play now a
significant role in four-dimensional topology (Donaldson and
Seiberg-Witten invariants), knot theory (Vassiliev invariants),
higher-dimensional topology (Gromov-Witten invariants), and
deformation quantization (Kontsevich's quantization of Poisson
manifolds). Moreover, although moduli spaces have been classical
objects of algebraic geometry (since the seminal work of P. Deligne
and D. Mumford), their topology has not been understood yet and has
presented a challenge for algebraic geometers for the last twenty
years. Thus unraveling the topology of moduli spaces seems to be very
important for progress in both topology and geometry.
***